Personalized Math -- A Feasibility Study

9550475 Rommel This experimental project tests and evaluates the potential of using measurements and analysis of biological form (morphology) to help students understand basic principles of biology. The study's goal is to determine the feasibility of helping K-12 teachers and especially middle school teachers, develop skills, materials, and instructional models to teach students how to collect and analyze measurements of their own bodies and then to compare these measurements over time. The study will determine the relevance of the study of morphology to the needs, interests, and abilities of science students. In support of this study teachers and students will be introduced to computer graphics that will all them to customize illustrations of students' skeletons and to compare these illustrations over time and to other organisms' growth. ***